Microlocal analysis on special geometric structures

Many of the geometric spaces that arise naturally in mathematics and physics are not perfectly smooth - they contain singularities where the usual rules break down. Understanding the structure of these singular spaces is a central problem in differential geometry, with deep connections to other areas of mathematics, including algebraic geometry, mathematical physics, number theory, and representation theory. This project studies a particular class of singular geometric spaces that are closely linked to models used in theoretical physics, such as gauge theory and string theory, and to the mathematical description of electromagnetic systems. By developing new analytic techniques to understand these spaces, the project aims to advance fundamental knowledge in geometry while shedding light on questions of interest to theoretical physics. Alongside the research program, the project addresses a range of educational and outreach activities, including expanding mentoring networks for undergraduate and graduate students and the organization of conferences and mini-courses designed for audiences with a wide range of mathematical backgrounds.

The PI plans to use geometric microlocal analysis and PDE techniques to study special geometry with singularities, which appear naturally as degeneration of compact objects and building blocks for gluing constructions. The project focuses on the following directions: (1) analytic and geometric behavior of gravitational instantons, including the study of their degenerations and the structure of their moduli spaces; (2) constant curvature metrics with conical and cusp singularities, with a focus on the moduli space compactification and related spectral properties.